Materials Fabrication in a Centrifuge

Development of unique welding characteristics is required for improving the performance of many technologically important small lightweight components such as valves, welded link assemblies, biomedical devices. Superior welding qualities can be achieved by manipulating the transport properties in the weld pool. A novel process for welding based upon centrifugation will be investigated.
The objective of the project is to understand the effect of centrifugal accelerations (1 gc <g<12gc) on the transport characteristics, microstructure, and joint efficiency of the weld. A unique and novel facility, known as the Multi-Gravity Research Welding System (MGRWS) will be used for this research project. It can generate a net acceleration of more than 20 times the earth's gravitational acceleration at the weld pool surface. Both autogenous (no filler) and non-autogenous (with filler) are welding processes that can be examined in the centrifuge. This project included well-planned learning experiences for graduate and undergraduate students that will enhance the "new generation" of manufacturing engineers' capabilities in the work force.